Realtime Visualization and Analysis of Scientific Video Data

The objectives of this project are to develop practical tools for online analysis and visualization of experimental video data that should be applicable in both research and teaching laboratories. The system will have a familiar web-based interface, promote collaborative visualization and remote access and take advantage of distributed computing resources to attain near-realtime performance. The system will be particularly oriented towards the seamless acquisition and analysis of video data in order to detech transitions during the running of experiments. Fast display techniques and spatial Karhunen-Loeve reconstructions will be among the techniques implemented to allow experimentalists to map out bifurcation structure as experimental parameters are changed.